Antarctica: Micro, Macro and In-between

The Principal Investigator proposes to work collaboratively with researchers at Palmer Station to create a suite of 10 drawings titled “Antarctica: Micro, Macro and In-between,” which will represent multiple perceptions of the Antarctic environment—from a variety of scales--in a triptych format.

A macro view of the Antarctica landscape will present an average person’s view of the natural world — a panoramic view of the landscape. A second panel will present a microscopic view of the natural world — a view typically seen only by research scientists. The third panel will be placed between the macro and micro panels. It will present an “in-between” view of the landscape that ranges from 3 feet to 15 feet in total area. Aspects of the macro and the micro images will be intertwined or layered with this image to create a seamless connection between the broad view and the microscopic view